U.S.-Argentina Visit to Plan Research on Experimental Charge Density Analysis

9422564 Coppens This U.S.-Argentina Program award will fund a planning visit by Dr. Philip Coppens, of the State University of New York at Buffalo, to go to Argentina to visit and consult with Prof. Dr. Graciela Punte and her colleagues at the Universidad Nacional de La Plata, active in the study of X- ray diffraction, for the purpose of developing a collaborative research project in charge density analysis of molecules and solids, and in the study of excited state species by diffraction and spectroscopic techniques. ***